Travel: NSF Student Travel Grant for 2026 ACM/IEEE Symposium on Edge Computing

The Tenth ACM/IEEE Symposium on Edge Computing (SEC)

Scope of Project, Intellectual Merit, and Broader Impacts: SEC is a forum for top researchers, engineers, students, entrepreneurs, and government officials who come together under one roof to discuss the opportunities and challenges that arise from rethinking cloud computing architectures and embracing edge computing. SEC takes a broad view of edge computing and solicits contributions from many fields of systems practice that embrace any aspect of edge computing..

Reasons to support this request include providing the students with the opportunity to:
o Interact with top researchers within their research domain;
o Learn, listen, and exchange ideas with other students working in similar or related research domains to build future collaborations;
o Learn what is considered state-of-the-art the areas of edge computing; and
o Attend topic specific workshops held in conjunction.